Research Initiation: Relational Databases in a Hierarchical Design Environment

As a way of managing the growing complexity of engineering designs, the design automation community is moving towards the use of hierarchical design tools: tools that operate on multi- layer representations of the complex structures being designed, so that lower, more detailed aspects of a design are not visible until the user specifically requests to see those aspects. This research will investigate the impact of a hierarchical, highly interactive design environment on the performance requirements for a database management system storing design information. Work completed by others shows that extended relational databases can exhibit satisfactory data retrieval performance in a design environment with (1) heavy use of main-memory caching, (2) a non-relational implementation, and (3) hierarchical design tools. The goal of this research is to develop a finer-grained examination of the data retrieval and update performance requirements of hierarchical design tools, and to test whether satisfactory update performance can be obtained using an extended relational database. To this end, the principal investigator will instrument Magic, a hierarchical VLSI layout editor; collect protocols of Magic's use by expert designers; and analyze these protocols against appropriate models of database access costs. This project will include support for one undergraduate student.